NSF Minority Graduate Student Travel Award

This action funds a Minority Graduate Student Travel Award for a visit to a prospective host laboratory at the University of Georgia for Mr. Hugo Cuevas in September, 2008.